Homotopy Theory Conference in Kinosaki, Japan

Abstract

Award: DMS-0304445
Principal Investigator: W. Stephen Wilson

A major international conference on homotopy theory and algebraic
topology will be held July 28 - August 1 in Kinosaki, Japan. The
conference will honor Professor Goro Nishida of Kyoto University
on the occasion of his 60th birthday. Professor Nishida has been
the dominant force in algebraic topology in Japan for the last 10
years. With his name associated with the conference,
participants will be attracted from all over the world. It will
be a major meeting place for mathematicians who do not normally
manage to get together. The conference will focus on the broad
range of subjects which Professor Nishida has influenced which
are still critical to today's research agenda in the field:
localization, periodicity in homotopy theory, Morava K-theory,
infinite loop spaces, homology and cohomology operations, modular
forms, group cohomology and classifying spaces.

This proposal is for funding to supply transportation for
researchers from the U.S.A. to attend the conference. The
conference itself is funded by Japan including the local support
of our participants. This conference will be the major
international conference in the field for the year 2003.
Distance and cost makes it difficult for Japanese and American
mathematicians to mix on a scale like this with any frequency.
This will be the biggest opportunity in over a decade (since
Professor Toda's 60th birthday conference) for many non-Japanese
to attend a conference in this field in Japan. Such an
opportunity may not come again for another decade. This grant
will allow several graduate students and recent Ph.D.s to attend.
It will also fund the largest contingent of U.S. women to ever
attend a conference in our field in Japan. In addition, it will
fund some researchers who have regular contact with Japan through
previous visits and graduate students. This contact will have a
much broader impact on research than just the conference.
Participants will establish research relationships which will
last for many years and help stimulate more interaction. We
would also expect to recruit numerous Japanese graduate students
to come to the U.S.A. Bringing such students abroad is difficult
to arrange, and the kind of personal interactions that occur at
such conferences speed up the process enormously. The presence of
a cadre of Japanese students with research experience in the USA
is enormously important for scientific exchange in the long run.